Closed Ecological Systems in the Teaching of Environmental Subjects

9361139 Shaffer In the near future, our children will make choices that will significantly change all life on earth. Thus, it is imperative that they obtain a coherent overview of how the biosphere operates and of how they are participants in that operation. A fascination for children of all ages and attitudes, Closed-Ecological-Systems (CES)--developed at NASA's Jet Propulsion Laboratory for Life- Support Studies and further researched for the past two decades at the University of Hawaii--are a gallon-sized simplified analogue of the biosphere that will autonomously recycle its elements and support life for decades. While CES, which are considered authentic "mini-planets," have obvious instructional value concerning global ecologic topics, currently marketed CES novelties are static and of limited usefulness. This Small Business Innovation Research (SBIR) Phase I project proposes to investigate the feasibility of developing a specialized interactive CES- photobioreactor containing shrimp-algae and even fish-plant ecosystems and incorporating accurate but inexpensive instrumentation; accompanied by defined media; experimental protocols; and short instructional text modules to serve as a supplemental educational aid applicable to grades K-12. The project has the potential to contribute a hands-on approach to explore a variety of major ecologic principles from the simple to the sophisticated and to offer the educator a vehicle for which to introduce related environmental subjects. ***